EMSW21-RTG: Enhancing the Research Workforce in Algebraic Geometry and its Boundaries in the Twenty-First Century

The project establishes a research training program in algebraic geometry
and its boundary areas at the University of Michigan. Target trainees are
recent PhDs and advanced graduate students. The project is run by five
senior faculty members representing a wide swath of current research
trends in algebraic geometry, in consultation with an additional 14 senior
faculty at Michigan in related areas. Activities include innovations in
seminar structure offering trainees broad exposure to a wide variety of
basic and research level topics in algebraic geometry (broadly construed);
an annual school (open also to young researchers outside Michigan)
covering a research topic of current importance taught by a prominent
researcher from outside Michigan; opportunities for post-doctoral
researchers to design and lead REU projects under the mentorship of a
senior faculty member; opportunities for advanced graduate students and
post-docs to develop their technical lecturing and writing skills; and
numerous opportunities for post-docs and advanced graduate students to
receive mentoring on all aspects of a research career in mathematics.

Algebraic geometry is one of the most central and active branches of
mathematics today, with increasingly important connections to other
branches of mathematics and science. Algebraic geometry also underlies
many applications of mathematics to technology and government, including
coding theory (bringing us, for example, the compact disc) and spline
theory (bringing us computer aided design and the computer graphics
essential to certain medical applications and Hollywood movies), as well
as important issues of national security pioneered by the National
Security Agency. The explosive growth of algebraic geometry at the end of
the twentieth century has made this a very exciting time to begin research
in the field, but it has also made it difficult for young researchers to
get started. This project will increase the flow of broadly trained
researchers in algebraic geometry and its boundary areas, therefore
enhancing the training infrastructure and the research workforce in these
vital areas of mathematics in the twenty-first century.